Materials World Network: Probing in-Vitro Structure-Property-Function Relationships of Ciruses at High-Resolution using Advanced Atomic Force Microscopy Methods

This Materials World Network project brings together Purdue University
and the Universidad Autonoma de Madrid, Spain, to develop advanced
Atomic Force Microscopy (AFM) techniques for investigating at
high-resolution the material properties of viruses in relevant saline
solutions. The goal is to enable significant advances in understanding
viral function or its mitigation in medicine or in the synthesis of a
new generation of nanomaterials using viruses for medicine,
nanocomposites, sensors, and nanoelectronics. The proposed AFM
techniques use novel multi-frequency techniques such as multi-harmonic
or bimodal AFM which can provide compositional contrast in liquids far
exceeding conventional methods at much faster speeds and with much
greater sensitivity. The theory component of the proposed work attempts
to distil metamodels from numerical simulations of mathematical models
of AFM cantilevers tapping on samples in liquids, in order to link the
observed material contrast to quantitative measures of local material
properties. The experimental component of the proposal will investigate
the inherent heterogeneities of elastic stiffness and charge density of
the capsids of bacteriophages (phi 29 and T7) and eukaryotic viruses
(minute virus of mice, and adenovirus) in solution and the influence of
sub-surface DNA structure on the surface elasticity and charge of fully
assembled viral capsids. The goal is to systematically investigate at
high resolution the connection between DNA packing and capsid structure
and the electromechanical properties of the assembled virus. An improved
understanding of the structure-property-function relationships of
viruses would not only broadly benefit medicine and virology, but it
would also be a great boon to the many emerging applications of viruses
in materials science and nanotechnology.

The project proposes to engage strongly with the materials and
biophysics communities, AFM industries, and to the larger AFM materials
community via cyber-enabled initiatives on the nanohub to ensure a wide
ranging impact of the proposed work.

This award is co-funded by the Division of Materials Research and the
Office of International Science and Engineering.